Training Culturally Tolerant Young Scientists and Engineers

9352953 McEachron Drexel University seeks to initiate an academic year EAI Young Scholars commuter program for 30 students entering grade 8. An enrichment program will be provided in the disciplines of physics, mathematics, engineering, and bioengineering. The students will participate in activities involving experimentation and engineering design, mathematical relationship formation and computer modeling, and laboratory investigations with faculty members at Drexel University. Many activities will involve students working in teams in a multicultural and multiethnic environment.